Multiuser Transmitter Optimization for Mobile Cellular Communications With Coordinating Base Stations

A class of multi-user transmitter optimization problems is treated in the context of mobile cellular communications. THe objective is to optimize transmitter pulse shapes given a variety of assumptions concerning the channel model, receivers, and signaling constraints. Solutions to these problems reveal optimal multiple-access strategies, given particular sets of modeling assumptions. The work may also lead to adaptive algorithms for multi-user transmitter optimization which enable a significant increase in system capacity. Both linear time-invariant and statistical (i.e., Rayleigh fading) channel models will be considered. Models for an isolated cell (the multiple-access channel), an isolated pair of cells, and a linear array of cells are presented. In the latter two cases, neighboring base stations may share information (i.e., received or transmitted signals for the reverse or forward link, respectively). The multi-cell channel models can capture different combinations of intra- and inter-cell multiple-access schemes. Antenna diversity at the transmitter and/or receiver will also be included. Receivers include the (single-user) matched-filter, and multi-user linear and decision-feedback detectors. In most cases the transmitters and detectors will be optimized according to a zero-forcing or Mean Squared Error criterion. For statistical channel models, the objective is to optimize performance averaged over the channel parameters. Multi-user transmitter optimization assuming multi carrier signaling will also be considered. In this case the objective is to maximize the size of the rate region by allocating transmitted bits and power to subchannels (independently for each user), subject to performance constraints. Finally, transmitter adaptation in the presence of time-varying channels and interference, and associated performance issues are studied.